Characterization of Copper-binding Properties of Firmly- bound Exopolymers of Sessile Bacteria from River Sediments

The objective of the project is to define the mechanisms by which a trace contaminant is removed from water by polysaccharides that are produced during microbial growth in bottom muds over which the water flows. The specific metallic contaminant to be studied in this project is copper and the microorganism to be used in this study was isolated from metal-laden sediments of the lower Fraser River in British Columbia, Canada.